CISE Research Infrastructure: Network of Symmetric Multiprocessors: An Infrastructure for Research in Scalable Systems and Applications

9624099 Li, Kai Dobkin, David Princeton University CISE Research Infrastructure: Network of Symmetric Multiprocessors : An Infrastructure for Research in Scalable Systems and Applications This award provides support for a research infrastructure based on commodity PC-based Symmetric MultiProcessor (SMP) servers, high-speed networks, and customized network interfaces and communication software. It will enable new research activities, extension of on-going research activities and will generate synergy among the several research efforts. Key research areas which will be enabled by the infrastructure include virtual memory-mapped communication, efficient shared virtual memory, scalable virtual storage servers, efficient message passing, and performance measurement. Application areas include scalable DNA computing simulations, parallel fluid dynamics, particle-based computation in a homogeneous medium and projects in parallel computational biology. The infrastructure consists primarily of stock hardware, but in quantity large enough to investigate the viability of building a large-scale scalable system. The infrastructure will be constructed in three phases: an initial phase, a building phase, and a large-scale experimental phase. In the initial phase, four PC-based SMP servers will be connected together with a custom-designed network. In the building phase, 16 PC based SMP servers will be connected with a high speed commercial network and a Myricom/Princeton customized network. In the experimental phase, 32 next generation PC-based SMP servers will be connected with a commercially available high-speed network and a Myricom/Princeton customized network. All research projects will utilize the infrastructure to conduct large-scale experiments.